Computer Laboratory Equipment for Geological Graphics Applications

The Department of Geology is purchasing microcomputers to integrate graphics information into geology. The students are using the equipment with autotracing techniques to create and enhance contour maps and model subsurface geology in three dimensions. Undergraduate research students are utilizing the techniques to present graphical interpretations of geochemical